High Resolution Upper Mantle Structure beneath the Tibetan Plateau and Its Surroundings from Studies of Seismic Waveforms

Mountain building by continent-continent collision is the most
important orogenic process on Earth whose mechanism is not
well understood. The collision between India and Asia is the
largest region of such collision and has produced the world's most
spectacular topography. Within this region, the Tibetan Plateau
stands out as a natural laboratory in which we can test hypotheses
regarding a fundamental process that has impacted continental
dynamics. Collision models, obtained in various studies, predict
significantly different upper-mantle structure beneath the plateau.
The upper mantle, therefore, holds a key to differentiating between
possible collisional models and to unraveling how this archetype
of plateaus came into being. The objective of this research is
to determine high resolution 3-D upper-mantle P and S velocity
structure beneath the Tibetan Plateau and neighboring regions.
The PIs will collect and process available seismic waveform
data of more than 300 broadband stations in the study area from
earthquakes in the upper-mantle distance range. These studies
should provide much improved lateral and depth resolution in the
upper mantle than it has been possible in all previous studies.
The results of the proposed study can be used to verify or dismiss
existing collision models and to develop new ones. The research
topic is also closely related to several undergraduate and graduate
courses (plate tectonics and geodynamics) that the PI is currently
developing and teaching at SLU. The proposed research involves
collaboration between Saint Louis University and the Institute of
Geophysics, Chinese Earthquake Administration. It will use seismic
data collected by several multi-national (China, France, Germany,
USA, etc) projects in Tibet.